Biochemical and Molecular Analysis of Mutations Caused by Transposable Element Insertions in the bz Locus of Maize

A number of provocative leads, which concern the effect of transposable element insertions in the bz locus of maize on the expression of functional (Bz) alleles and which have arisen during our research of the past three years will be investigated. The research will involve bz-m13 (an insertion of a 2.2 kb defective Spm (dSpm) in the second exon of a Bz allele) and the change of state derivatives therefrom as well as Bz-wm, which resulted from a Ds insertion 63 base pairs upstream from the transcription start site in a BZ allele, and the stable Bz revertant from Bz-wm. The areas in which we expect to derive basic information concerning control of gene expression are: 1) the effects of perturbation of a 5' regulatory sequence, which modulates the quantity of UDPglucose:flavonoid glucosyl transferase (UFGT, which is the enzyme encoded by Bz alleles) and which probably has a role in tissue-specific gene expression as well, by extra nucleotide or small deletions resulting from excision of the Ds transposable element present in Bz-wm; 2) the role of an antisense dSpm message in reducing the transcription or processing of the pre-mRNA in the CS12 allele and whether this antisense dSpm message is transcribed from the dSpm inserted in CS12 or from a dSpm elsewhere in the genome; 3) the flexibility of the maize pre-mRNA processing system in dealing with transcripts containing a dSpm and the sequence signals to which the system responds most strongly; and 4) the effect of having two large dSpms inserted within 363 bp of each other in exons 1 and 2 of the bz locus in the CS10 alleleon of gene expression and possible chromosome breakage as well as the possibility that the two insertions, which may be identical, excise at different times in development when an active Spm is present. If the insertions are shown to be identical, sequences flanking the transposable elements may be the determining factor. Molecular genetics has made it possible to learn a great deal about the structure of transposable elements and their effect upon gene expression, usually through insertion into a structural gene. However, it is becoming apparent that more subtle interactions maybe occuring between transposable elements and the genomes in which they reside. Studies such as this one will help to clarify the situation.